Student Travel for Numerical Relativity and Data Analysis 2008 Conference

This award supports student travel to the Numerical Relativity and Data Analysis Conference (NRDA 2008) held at Syracuse University, August 11 - 14, 2008. The focus of the NRDA 2008 conference will be gravitational-wave science of binaries consisting of compact objects (black holes and neutron stars) in ground-based gravitational wave detectors. Topics that will be covered include: black hole simulations, searches for gravitational waves from bursts, compact binaries and ringdowns, simulations of neutron star-black hole and double neutron star binaries, errors, calibration and accuracies in detection and parameter estimation, comparison of post-Newtonian theory with results from results from numerical relativity and a summary of the status of the Numerical INJection Analysis (NINJA) project.